Fourth Conference on Function Spaces at Southern Illinois University at Edwardsville, May 14 -19, 2002

ABSTRACT

PI: Krzysztof M. Jarosz
Proposal: DMS-0135219
Institution: Southern Illinois University at Edwardsville

This proposal requests funding for a Fourth Conference on Function
Spaces featuring several internationally known leaders in the
field as principal speakers. This conference has a long an
successful history and it is expected that it will attract a fair
number of graduate students and young researchers form all of the
US. Most of the award funds will be used to enable them to attend
the Symposium. We are confident that the event will once again be
of significant benefit to a broad mathematical community and
enthusiastically recommend the award.